Parallel Processing: Design Annalysis, and Implementation of Parallel Algorithms

The goal of this project is to provide a significant research experience to undergraduate students in order to encourage them to pursue graduate careers in science. Students will be especially recruited from under-represented groups and institutions in the Midwest. The focus of the research projects will be parallel processing, and it will include design, analysis and implementation of parallel algorithms as well as suitable programming languages. During the summer, students will learn the tools and background necessary to parallel processing and, with the help of faculty, define a research project. They will continue research on their selected projects at their home institutions during the academic year.